Engineering Research Equipment Grant: Upgrade Hardware for 80386 Computer System

This research equipment award is made to partially fund the purchase of computer hardware and peripheral equipment that will improve the operation of an existing system that is used to simulate occupant dynamics in car crashes. The simulation model that is used covers both vehicular geometry and restraint systems.